Postdoctoral Research Fellowships in Chemistry

Dr. Margaret M. Bruehl has been awarded a Postdoctoral Research Fellowship In Chemistry. Dr. Bruehl's doctoral degree was from Northwestern University under the supervision of Professor George Schatz. Dr.Bruehl intends to continue research at the University of Colorado under the sponsorship of Professor James T. Hynes. Dr. Bruehl's area of postdoctoral training and research will be theoretical chemical dynamics with emphasis on simulation, and interpretation of results in terms of analytic and approximation theories. Complex systems in the condensed phase will be considered, specifically proton and hydride transfer reactions in solution and in model enzymes. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.